Vertebrate Ranging Scale and Tree Dynamics in a Congo Forest

A central question in community ecology is how species diversity will typically respond to
the removal of a one or a few species. Are species highly redundant so that the loss of one species
is easily compensated for by other, functionally equivalent species? Or, do species tend to play
unique functional roles so that the loss of one species can propagate out to cause a catastrophic
loss of diversity. These questions assume ever greater practical importance as the global wave of
extinctions accelerates. And, although some progress has been made in simple model systems, we
still have a vague understanding of more complex communities with dynamics that evolve over
large temporal and spatial scales. It is not clear whether anthropogenically induced extinction of
individual species will generally cascade across these communities. Most notably, we have little
ability to predict how the mounting loss of the largest mammals to hunting is likely to affect
diversity in tropical forests, which are home to a large proportion of the world's species.
The primary focus of this study will be the collection of empirical data linking the ranging
behavior of terrestrial mammals to tree species diversity in a Congo forest. The study site typifies
tropical forests worldwide in that its mammals act both as seed dispersers for a species rich guild
of spatially rare trees and seed predators of a species poor guild of spatially aggregated trees.
Even though mammals of many body sizes disperse and predate the same tree species, they may
not be functionally redundant because mammalian body size is highly correlated with ranging
scale. Thus, large mammals are particularly mobile seed predators that are drawn to dense stands
of the species poor guild from great distances. Large mammals also tend to disperse seeds over a
great area, which provides a number of benefits to mutualists in the species rich tree guild,
including escape from predators & pathogens. Consequently, local extinction of large mammals
may well tip the competitive balance between guilds, triggering a loss of diversity in the species
rich tree guild that propagates out through a myriad of dependent plants and animals, including
smaller mammalian seed dispersers.
This project will include both animal and vegetation studies and use a combination of ground
and remote sensing methods. Aerial video and satellite imagery at several resolutions will be used
to develop detailed maps of the distribution of the two tree guilds over a large scale. Line transect
methods will then be used to quantify how the spatial grain of mixing between the two tree guilds
influences both fruit availability and the spatial distribution of mammals varying in body size
from mice to elephants. Trapping studies on rodents, the first GPS telemetry study on several
duiker species, and the first telemetry study of any kind on red river hogs will quantify how body
size influences the spatio-temporal pattern of fruit availability within an animal's home range.
And an attempt will be made to identify a set of individual tree species using high-resolution
digital photography and aerial videography. If this proves successful, it will allow the first large-
scale scale study of tropical tree distribution and phenology. The empirical data collected in the
study will be used to parameterize coupled, spatially explicit models of animal ranging and
vegetation dynamics with the goal of predicting how large mammal extirpation is likely to affect
tree species diversity.
In addition to addressing basic theoretical issues, data collected in this project will be of
direct value to wildlife management, both guiding management at the study site and informing
park planning and sustainable hunting programs across the region. Remote sensing methodologies
developed in this project will also provide the tools for studying how the wave of logging
currently sweeping Central Africa is likely to affect tree species diversity. And African personnel
trained and employed in the study will bolster feeble research and management capacity in the
region.